Computerized Data Acquisition for Intermediate Laboratory (Physics)

This award is made as part of the Instrumentation and Laboratory Improvement Program. This Program funds innovative new projects for undergraduate physics laboratories. This project emphasizes data collection and processing using computers. The equipment acquired with this grant will be used with a variety of experiments.